Plasma Overlap Physics in Nested-Well Traps and the Quest for Cold Antihydrogen

9876921 Ordonez The objective of this research is to perform time-dependent numerical simulations which demonstrate how to get two oppositely charged plasmas to overlap in the same spatial region when trapped in a solenoidal field. The numerical results are needed for a future experiment intended to produce cold antihydrogen in a nested-well plasma trap at CERN.